SCALAR: Scalable Architecture for Replication of Data

Proposal Number : CCR-9902023
TITLE : SCALAR : Scalable Architecture for Replication on the Web
PI: Peter Scheuermann
Project Summary:

The wide use of the World-Wide Web and the ease of access to the Internet
are changing
drastically our requirements in distributed systems. The exponentially
growing scale of use of the
Web is stressing the capacity of the Internet and leads to poor performance
and low reliability of
Web service. Replication is one of the major techniques that have been
proposed to overcome these problems.

This project will focus on the development of a prototype system that will
provide a scalable
architecture for replication on the Web. A new client/server architecture
that will allow for user-transparent geographic replication is
investigated. In this system, the clients are downloaded as
signed applets to commercially available browsers. Web servers that support
servlets can be
directly extended with servlets, otherwise with server-side proxies that
support servlets. Unlike
other proposed Web architectures, both clients and servers take active
roles in this architecture.
Server machines determine the documents to be replicated/migrated and best
locations for the
documents, while client machines choose the best server to submit their
requests based on estimates of the servers' prior response times. Heuristic
algorithms based on clustering techniques
will be developed in order to determine sets of documents that be
beneficially migrated/replicated as a unit.